REU Site: Integrated Science of Complex Materials

The Research Experience for Undergraduate (REU) Site at Boston College, Department of Physics aims to attract promising students from colleges with limited research facilities, and immerse them in highly collaborative research environment. Each year, ten undergraduate students will have the opportunity to work closely with faculty mentors on both theoretical and experimental research projects in the area of novel and complex electronic materials. Within this broad area, there will be considerable variety in the systems studied and techniques employed: from nanotubes to organic superconductors, from Scanning Tunneling Microscope to high filed pulsed magnet. In addition to their work with faculty advisors, students will attend topical lectures, participate in undergraduate seminars, tour local science facilities, and enjoy social functions which serve to foster close and collegial interactions among the REU participants and faculty research groups.